Instrumentation for Measurement and Process Control

A laboratory is being established for measurement and process control combining four disciplines--electronic, water/wastewater, pulp and paper technology, and physics. The laboratory is equipped with self-contained workstations designed for hands-on applications of the measurement, control and troubleshooting of pressure, flow, level, temperature, heat exchangers, and analytic process loops. Experiments involve mechanical, physical, chemical, electronic, pneumatic, measurement, mathematical, spatial relations, and abstract reasoning disciplines.